Understanding in Middle School Mathematics...

The current reform movement in mathematics education emphasizes the importance of students constructing their own knowledge in an atmosphere that encourages sharing of ideas, justification of mathematical assertions, and creation of shared meaning for the mathematics being learned. Research has begun to shed light on the social processes by which this can occur, but has largely ignored questions of how mathematical structure is communicated, particularly at upper grade levels. Issues of how both teachers and students view mathematics, especially the need for justification of mathematical assertions, also become critical at this level. The purpose of this study is to investigate (1) ways in which language serves as a mediator of beliefs about mathematics; (2) ways in which mathematicl structure is communicated, particularly through use of metaphor and analogy; (3) how an appreciation for mathematical justification develops in classrooms; and (4) how new teachers are socialized into patterns of classroom discourse. The study will be interpretive, the data consisting largely of fieldnotes, interviews and transcribed audiotapes of classroom discourse. The research will suggest ways in which goals of the current reform movement can better be met, both by improving discourse patterns and by improving the ways in which new teachers adopt discourse patterns.